Particle Acceleration in Solar Flares

A Key problem in solar flare physics is the manner in which protons and other particles are accelerated in a few seconds as evidenced by impulsive y-ray emission. The most widely accepted models in explaining this acceleration are shock acceleration and stochastic acceleration by Alfven or magnetosonic waves. Neither of these models has developed self-consistency or has direct observational verification. This grant will permit the consistent development of a single-loop Alfven wave stochastic acceleration model as the topic most likely to allow a close interaction between theory and observations. A half-loop is divided into 3 coronal sections attached to a model chromosphere and photosphere. The coronal sections include the source where primary acceleration occurs, a section beyond the source where further acceleration occurs and a transport section in which protons propagate diffusively. Unlike previous work, it will be a complete model for nonrelativistic energies including a nuclear interaction calculation. Thus , it will be possible to study the effect of changing the spectrum and/or power of turbulence in the source, the loop size, etc., throughout the whole loop. In short, it will be possible to put the stochastic acceleration model to a very thorough test. Observational consequences in prompt y-ray emission come from the nuclear interaction part of the calculation. A radio diagnostic of the low-frequency turbulence in the source will be developed to provide an observational means of verifying its existence. These results will increase understanding in this important area of research. The overall aim is to improve current understanding of particle acceleration at the sun. These particles form part of the earth's environment and, therefore, this work is important to S/T relations. //